Mathematical Sciences: Some Questions in Nonlinear Differential Equations

This project continues mathematical research on questions related to ordinary and partial differential equations. The research considers properties of solutions obtained by combining global topological techniques with analytic tools. Work on ordinary differential equations focuses on systems, called Hamiltonian systems, which serve as models for the motion of finite systems of particles. Since the 1970's there has been considerable progress in the study of periodic solutions of Hamiltonian systems through newly developed techniques growing out of the calculus of variations. Current research will use past work in analyzing other types of global solutions (the periodic ones are the simplest, but there are others). The solution paths, often called orbits, are much more difficult to treat because of the loss of boundedness. Still, there is some promising preliminary work which can be pursued further. There are analogous questions which can be raised for semilinear elliptic partial differential equations. Earlier research has led to the existence of solutions which do not change sign. Although there is considerable literature on the subject now, the results say little about the nature of the solutions (e.g. how can one describe the rise and fall of solution surfaces?). Work will be done on questions of this nature.